Intensive Seminar in Lower Division Science Instruction

Western Washington University, Whatcom Community College and Seattle Central Community College in cooperation with the State Board for Community College Education plans to offer an intensive 5-day seminar in a science discipline for 20 community college faculty members during the summer of 1992. The community college faculty will be selected from the 27 state supported community colleges and Northwest Indian College. A team of two university professors and two community college instructors will conduct the seminar. Date: Summer 1992 Contact: Calvin E. Mathews, Department of Educational Administration